Particle Detection in Superfluid Helium: Sensor Sensitivity and Electron Detection

***
9870276
Lanou
This funding will support work to develop a novel particle detector using super-fluid Helium. If the work is successful, this detector will be used to look for very low energy neutrinos such as those which are produced in nuclear interactions in the Sun. For many years, experiments to study solar neutrinos have seen fewer neutrinos than predicted. One explanation, supported by recent experimental results, suggests that the neutrinos may be changing their type on the journey from the Sun to the Earth. The experiments which could be done with this detector will help to determine if this explanation is correct.
***